Improvement of the General Chemistry Curriculum Through Simulations and Modern Equipment

The curriculum is being enhanced by the establishment of a dedicated microcomputer laboratory component to supplement and expand the present laboratory exercises taught in the chemistry courses. Twenty computers, two printers, two plotters and the requisite software are being purchased. The equipment is being used to reinforce experiments; to familiarize students with modern analytical techniques by using computer simulations, particularly in areas where expensive instrumentation is not available; and to provide numerous samples for examination and analysis to supplement experiences in the laboratory. The additional laboratory training is helping students gain further knowledge and experience necessary for successful entry and completion of upper division curriculum. Students are also increasing their competency and familiarity with computers, a basic tool of modern science and industry. The grantee is matching the award from non-Federal sources.